The Molecular Design of Surface Active Polymers that Create Functional Surfaces

9810069 Koberstein The proposes research program constitutes a fundamental study of functional polymer surfaces directed toward the objective of devising new methods for decorating polymer surfaces with functional groups. The specific approach adopted is the molecular design and synthesis of surface active delivery vehicles that carry functional groups to the surface of a polymeric matrix by self assembly processes. Two distinct but integrated research thrusts are pursued: a core program that focuses on elucidating the equilibrium and dynamic surface properties of end-functional and center-functional homopolymers as model systems for functional polymer surfaces, and a directed program of studies aimed at developing surface delivery vehicles for decorating biomaterial surfaces. The comprehensive core research involves synthesis of model polymers,theoretical modeling and experimental characterization of functional polymer surfaces including development of a new surface.analysis technique. The applied research program is focused on decorating commercial biomaterial surfaces with cell adhesion ligands and growth factors that can induce the formation of bone cells at an implant surface placed in vivo. %%% The proposed research describes novel methods that allow precise controlof the chemical functionality at polymer surfaces and will impact a broad range of polymer applications that ranges from adhesives to lubricants and non-stick or release coatings. Of particular interest to society is the need to create new biomaterial surfaces that are designed to effectively interface with living tissues. As the human lifespan has continually increased there has emerged an urgent need for synthetic replacements for damaged or missing tissue. New methods are described to synthesize the next generation of implantable biomaterials that are not only biocompatible, but are designed to induce a direct biological response such as bone regeneration. This novel approach to ti ssue engineering has the potential to improve the quality of life of many individuals who are in need of tissueregeneration or repair. ***